Support for the 17th International Society for Photo- grammetry and Remote Sensing Congress; Washington, DC; August 1992

Because research on photogrammetry, remote sensing, geographic information systems, and related topics has been so dynamic in recent decades, the quadrennial congresses sponsored by the International Society for Photogrammetry and Remote Sensing (ISPRS) have become especially important settings at which scholars from throughout the world come together to exchange the most current results of their research and to plan future collaborative activities. The 17th Congress of the ISPRS will be held in Washington, D.C., in early August 1992, providing an excellent opportunity for American scientists to meet directly with experts from throughout the rest of the world. This award provides support for the 1992 ISPRS Congress in two ways. First it provides financial assistance to offset costs of publication and distribution of proceedings within which about 600 papers will be reproduced. Second, it provides a means by which other federal government agencies may choose to provide financial support through interagency agreements that will fund supplements to the initial award. By partially subsidizing the publication and distribution costs of the congress proceedings, this valuable resource will be made available at reduced costs to scientists unable to attend the congress, thereby expanding the beneficial impacts of the congress. Further positive consequences of this grant will be realized if NSF can assist in channelling contributions from other federal agencies to this important activity.